U.S.-Iceland Cooperative Research on the Evolutionary Response of the Plant, Nardus Stricta, to Naturally Elevated Levels of Atmospheric Carbon Dioxide

9224941 Oechel This award supports Professor Walter C. Oechel and a graduate student from San Diego State University to collaborate in physiological ecology with Professor Bjartmar Sveinbjornsson and others of the Institute of Biology of the University of Iceland. They will study the long-term effects of elevated carbon dioxide (CO2) on an arctic plant species (Nardus stricta) which is thought to have evolved for thousands of years exposed to an elevated CO2 atmosphere near certain mineral springs in Iceland. They will characterize the physical environment around the springs and measure a large number of physiological, organismal, and community level features over time. The U.S. team brings particular expertise in studying physiological and ecosystem-level responses of plants to CO2, and Dr. Oechel has extensive field experience in the arctic regions of Alaska. Dr. Sveinbjornsson is an expert in mosses and has studied the effects of nutrient levels and water stress on plants in arctic ecosystems. Environmental measurements will be a shared responsibility; studies of Nardus stricta will be done principally by the U.S. participants, and complementary studies of a moss species will be carried out by the Icelandic scientists. The collaborative nature of this project is essential to its success, since no single research group has the necessary site access and biological expertise. The concentration of CO2 is increasing in the atmosphere due to the burning of fossil fuels and deforestation. Experimental research to examine its effects on plant growth suggest that short-term exposure to higher CO2 can stimulate growth, which has encouraged a number of observers. However, other more recent studies have demonstrated that long term exposure (over a year) may have little or no positive effect, and may even accelerate the depletion of other nutrients needed by plants. The mineral springs of Iceland make an excellent and possibly unique model system for studying the long-term effects of elevated CO2 on vegetation in a natural environment with minimal manipulation. The proposed research has the potential to answer important questions about how human-induced CO2 elevation will affect world vegetation and carbon balance in the arctic. ***